ALVIN/Sea Beam Integrated Shipboard Computing

The introduction of a swath-mapping Sea Beam capability to the Research Vessel ATLANTIS II, and tender to the Deep Submergence Vehicle ALVIN, has had a profound effect on the submersible's scientific operations and productivity. The reason for this improvement is a greatly improved shipboard computing capability for navigation and bathymetry, and for general data logging, processing and display. This full capability is presently available only during those cruises when Sea Beam personnel are on board. This instrumentation project will upgrade the ATLANTIS II's shipboard computing capability and will provide software documentation so that it may be operated by a member of the ALVIN technical support on all research cruises. Shipboard processors will be upgraded for improved maintainability, and common software will be developed for precision navigation of the submarine, and for data logging, integration, processing and display. The new computing system will combine transponder and traditional navigation, and data from this system will be logged along with individual navigation sources, and integrated with scientific data. All shipboard data, including dive, station, submersible and Sea Beam data will be integrated in the ALVIN/Sea Beam shipboard computers into a common data base for return to shore as well as for processing and display at sea. This integrated computer capability will allow scientists involved with any operation aboard the ATLANTIS II to work with the same computer system containing all cruise data in a coordinated and navigated format.